PostDoctoral Research Fellowship

This award is made as part of the FY 2021 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Kent B. Vashaw is " Noncommutative tensor triangular geometry ". The host institution for the fellowship is Massachusetts Institute of Technology, and the sponsoring scientist is Pavel Etingof.